RAPID: Seismic Investigation of Geysers at El Tatio

THhis RAPID requestaims to collect a new and exciting data set that will support geyser eruption
research currently funded by the National Science Foundation. The goal of this proposal
is to create a short-term seismic array that will monitor and characterize the seismic
behavior of the shall subsurface at El Tatio Geyser Fields. This is the third largest
geyser field in the world. Due to the more relaxed stance on marginally invasive
scientific investigations, El Tatio is an ideal location to deploy such a network. The data
will be unique in sensor density and duration. Consequently, results will likely surpass
those for any other geyser field. The goal is to characterize subsurface processes resulting in seismic vibrations and
correlate these sources with surface eruption characteristics measured by Michael
Manga’s group (at UC Berkeley). The concurrent measurements of temperature,
discharge rate, eruption height, eruption duration and recurrence time, will make this data
set completely unique.

As the world’s third largest geyser field, El Tatio is a key geotourism location. Better
understanding of the subsurface processes for such locations will eventually help
education the broader public. Geyser eruptions are also key for understanding volcanic
eruption processes as well as constraining important properties for geothermal energy
generation. Because this is a unique data set, and the data will be archived at the IRIS
DMC for posterity, we anticipate that the data will contribute to further investigations
into geothermal and geyser processes.